Evolution of the retrotransposons R1 and R2

R1 and R2 are sequence-specific retrotransposable elements found inserted in a fraction of the 28S ribosomal RNA genes of most arthropods. The objective of this proposal is to determine whether the remarkable success of these elements is due to their freedom to move from species to species or their ability to remain active in a species lineage over long evolutionary periods. Most experiments will focus on the sequence relationships of R1 and R2 isolated from species of the dipteran genus Drosophila. The 3' half of the elements will be cloned after the polymerase chain reaction amplification and their nucleotide sequences determined. This sequence analysis will be complemented with studies of the distribution of R1 and R2 within different geographical strains of several species using genomic DNA blotting procedures. Experiments will also be conducted with three species of parasitic wasp (genus Nasonia) which contain multiple families of highly divergent R1 elements. %%% The proposed experiments will provide information that is fundamental to an understanding of the stability of mobile elements within genomes, their ability to transfer between species, and their ability to regulate their own abundance.